Visualization & Analysis of Algorithms

The prime goal of this research is to understand the performance characteristics of fundamental algorithms that are likely to be broadly applicable. Considerations include analytic techniques that can result in precise performance predictions and essential characteristics of specific implementations and their likely impact in practical applications. A goal is to be able to make intelligent choices among existing algorithms for the same task and to have a reasonable basis for developing new, better algorithms. Visual presentations of information can be an important tool in the study of algorithms. The emphasis in this project is on exploiting recent developments in printing technology to enable the design of information-rich visual representations that can effectively exhibit essential properties of algorithms, and on using such representations as an integral part of an ongoing research program in the design and analysis of combinatorial algorithms.//